EarthCube Conceptual Design: A Scalable Community Driven Architecture

The PIs develop a conceptual architecture for the EarthCube program. The conceptual architecture
will serve as the blueprint for the definition, construction, and deployment of both existing
and new components to ensure that they can be unified and integrated into a evolutionary national
infrastructure for EarthCube. They intend to create a concept that incorporates findings and
requirements from ongoing EarthCube activities as well as other cross-agency Earth Science
informatics efforts. The architecture models will be a roadmap for building an extensible
and sustainable EarthCube system that facilitates new science and inspires substantive participation
of a broad spectrum of geoscientists. The project team is led by a group of computer scientists
from National Aeronautics and Space Administration (NASA) and private industry that has extensive
experience and a proven track record leading the architecture, design and development of complex
and data intensive science data systems. They will specifically focus on the development of
a guiding architecture report and specification.

The results of this EarthCube architecture study can intellectually
contribute to other scientific and agency efforts as they are studying new architectural models
to address scientific data management and discovery in the big data era.